Processes Controlling Depositional Signals of Environmental Change in the Fly River Sediment Dispersal System: Mechanisms and Rates of Shelf Clinoform Development

Nittrouer

Abstract

Funding will allow further documentation of the processes that influence sedimentation on the offshore portion of the Fly River delta, Papua New Guinea, and the nature of sedimentary deposits that record those processes. The larger goal is to understand how environmental signals are transmitted through sedimentary systems and recorded by them. The PIs are provided one-year support to complete the analysis, synthesis and publication of results from their recent MARGINS field program in Papua New Guinea.